Rational Landen Transformations, Dynamical Systems, and Hurwitz Zeta Function

Moll
0409968

Many problems in physics and engineering require the exact
evaluation of integrals in terms of parameters appearing in those
integrals. These problems come up in the study of particle
physics and classical mechanics. While it is not always possible
to find analytic expressions, the investigator and his colleagues
study questions that appear in the development of an efficient
and robust symbolic software package that should give such
results in closed form, or decide whether such an expression is
achievable. The investigator's goal is to develop algorithms
that expand upon the capabilities of existing software pacakages
that are widely used in industry and universities. The
investigator's efforts are concentrated in two classes: rational
functions, and elementary functions related to the Hurwitz zeta
function. The study of this last class has produced a new
approach to conjectures on the so-called multiple zeta values and
the cloed-form evaluation of Tornheim-Zagier sums.

The problem of definite integration of special functions started
in the eighteen century with the work of J. Bernoulli. The
knowledge developed from this problem has been central in many
parts of analysis and applied mathematics. The development of
highly sophisticated symbolic languages during the last part of
the 20th century has required further study of this old problem.
The investigator and his colleagues are developing the
mathematical theory that is needed for the symbolic evaluation of
these integrals. It is a surprising fact that this endevour has
connections with many areas of mathematics. The investigator
develops new algorithms that ensure the efficiency and robustness
of the current symbolic languages available to the scientific
community.